Nonperturbative Methods in the Theory of Dilute Bose Gases

Theoretical methods will be developed to treat one and two dimensional fermionic and bosonic gases at ultralow temperature. The approach taken is a combination of the renormalization group method, well known in condensed matter physics and the principal investigators lambda freedom technique used to remove ultra-violet divergences.